Young Scholars Program -- EARLY ALERT

The New Mexico Institute of Mining and Technology and the Research Center for Energetic Materials will initiate a year-round, Early Alert Young Scholars project in the Physical Sciences to include an intensive, four-week, residential, summer component for 24 students entering grade 9. This program is for minority participants and will focus on the applications of physics and physical science to explosive technology, as well as to other disciplines. Participants will be involved in a research project, field trips, science ethics, career decision making, the development of a science project to be completed during the academic year and instruction in math and science.